Basic Ionization, Airglow and Auroral Processes

The investigators will calculate the velocity distribution of oxygen atoms in the ground and metastable states as functions of altitude in the terrestrial atmosphere. In previous work, the investigators have developed a set of computer codes that will enable them to compute the equilibrium velocity distributions of energetic atoms as a function of altitude in the atmosphere. These will be used to determine the transfer of energy in collisions of energetic atoms that take proper account of the dependence of the energy transfer cross sections on the scattering angle. They will also study the transmission of ultraviolet radiation through the atmosphere with a focus on the temperature dependence of the absorption cross sections. This is a continuation of theoretical studies of energetic atoms and their effects on the chemistry and evolution of the atmosphere.